New Unifying Structures in Lie Theory and the Cubic Dirac Operator

A whole array of questions in different mathematical areas seem
to be converge to questions having to do with the set of alcoves
in a fixed Weyl chamber of a semisimple Lie group. The areas
include Kac-Moody theory, homology of loop groups, quantum
cohomology, the Verlinde algebra, MacDonald identities, Schubert
calculus, ideals in the Borel subalgebra, symmetric space theory
and the Cartan-Weyl representation theory of compact Lie
groups. In effect our proposal is to sort out what is going on to
unify what seems to us to be unifiable in the subjects listed
above.

Group theory, and especially Lie group theory, lies at the heart
of mathematics and the application of mathematics to problems in
the real world. Included in the latter are applications to both
classical and quantum mechanics, control theory, string theory,
chemistry and crystallography. Lie group theory is extremely
intricate and the extent to which it is applicable depends highly
on a knowledge of its intricacies. The proposed project expects
to discover highly exciting new structures in the subject and
would unify many existing structures. The effect that would be to
greatly increase our understanding and our ability to use these
powerful structures. This award is jointly funded by the programs
in Geometric Analysis and Algebra, Number Theory, & Combinatorics.